Summer High School Honors Science Program

A High School Honors Science Program will be conducted at Michigan State University in the summer of 1988. This program has been held on the campus for the past 29 summers. In 1988 it would consist of a 48- day program directed toward high school juniors and sophomores of high ability. The objectives are to provide these individuals with challenging scientific activities, provide rewarding contacts with peers having similar abilities and interests, and identify and nurture talent. It allows individuals to select a topic of interest within experimental biology, biophysics, or plant science and to conduct independent research under the supervision of a volunteer faculty advisor in whose laboratory they work. In addition to lab work, students are taught how to use library facilities, are required to keep a daily log of their activities and prepare final oral and written reports. The students are housed in a university residence hall under the supervision of experienced counselors.